Dissertation Research: Alternative Prehistoric Economies of the Central Moluccas, Indonesia

Under the direction of Dr. P. Bion Griffin, Mr. Ken Stark will collect data for his doctoral dissertation. Preliminary survey has revealed the presence of rich archaeological sites in the Molucca Islands of Indonesia. While it is likely that this area was first inhabited by humans at least 40,000 years ago, very little is known of the prehistory of this region. Mr. Stark and colleagues will carry out a three stage field project. First they will return to two known rockshelter sites, one in a humid coastal the other in a drier inland environment. Test excavations will be conducted to characterize site stratigraphy and depth, to collect faunal botanical, lithic and ceramic materials as well as materials suitable for radiocarbon dating. In the second stage of the research intensive areal survey will be carried out to locate other sites. Finally large-scale excavation will be conducted in the most promising localities to enlarge sample size and to provide additional information on human activities and how they changed over time. Archaeologists are extremely interested in early human adaptation to tropical rainforest environments. Although it has appeared, on the basis of ethnographic evidence, that hunters and gatherers successfully adapted to such regions, recent studies have thrown doubt on this conclusion. Some anthropologists have argued that rainforests are carbohydrate poor and that what at first appear to be ancient ways of life recently changed by contact with agriculturalists, are not so. Rather a "pure" hunting and gathering lifestyle in such environments is impossible; it also is recent and dependent on nutritional input from domestic plants. The Moluccas provide an excellent site to examine this issue since it is likely that hunters and gatherers lived on the island by ca. 40,000 years ago and that the introduction of agriculture dates back only several thousand years. Mr. Stark's research will address this question. Assuming that evidence of early habitation is found, the research should shed light on the specific subsistence adaptations which were employed and examine how they changed over time. It will also examine how introduced domestic crops affected the traditional pattern. This research is important for several reasons. It will increase archaeological knowledge in a relatively unknown part of the world. It will shed new light on how humans adapt, at a simple level of technology, to tropical environments and it will contribute to the training of an extremely promising young scientist.